U.S.-Korea Cooperative Research on Theoretical Nuclear Physics

This proposal requests funds to permit Dr. Takeshi Udagawa, Department of Physics, University of Texas, to pursue with Dr. Byung-Taik Kim, Department of Physics, Sung Kyun Kwan University, Suwon, Korea, for a period of 24 months, a program of research in theoretical nuclear physics dealing primarily with inelastic scattering. In their experiments a target bound nucleon is first knocked out to an unbound orbit. The nucleon may then escape from the target (knockout) or be recaptured by the target (knockout-fusion). In previous research the collaborators have developed a theoretical approach to evaluate the cross sections of these inelastic nuclear reactions, fitting well some of the available data. In the present research, they will improve the theory so that inelastic cross sections may be calculated in both bound and unbound regions on the same basis. Having developed the theoretical basis for understanding knockout-fusion nuclear processes, the collaborators will introduce the necessary modifications, and Dr. Kim will develop a computer program for carrying out numerical calculations. This computer program will be installed on the Cray X-MP computer at the University of Texas and tested. Actual calculations will be made by researchers at the University of Texas. This project is relevant to the objectives of the U.S.-Korea Cooperative Science Program which seeks to increase the level of cooperation between U.S. and Korean scientists and engineers through the exchange of scientific information, ideas, skills, and techniques and through collaboration on problems of mutual benefit. The U.S. and Korean collaborators are highly respected scientists with extensive research experience and productive publication records in the field of the proposal. They have collaborated successfully in the past.